Adapting a Learning Factory Model to Re-Engineer Manufacturing Curricula

Engineering - Other (59)
There is a growing awareness in the engineering community of the need for integrating more practice-based experiences in the undergraduate curricula. An effective way to improve undergraduate engineering students' comprehension and ability to apply manufacturing principles is through hands-on learning and experimentation. This project uses a metal cutting/machining laboratory designed around the learning factory concept, adapted from the Penn State model, to enhance teaching and instruction of manufacturing principles and applications in the Mechanical and Industrial Engineering Programs. The project is enhancing undergraduate learning and student ability to apply concepts from school to the workplace and improved integration of manufacturing courses in the curricula. The project is directly impacting 5 courses and 150 students.